RIMI: Synthesis, Characterization, and Simulations of Silver Chalcogenides, Ag2(S,Se,Te)

9450412 The proposed research encompasses the synthesis of pseudo-ternary compounds of the silver chalcogenides and the characterization and simulation of their physical and electrical properties. The ultimate aim is to relate structural information to the ionic conductivity and diffusivity of silver to obtain a deeper understanding of the mechanism of superionic conductivity which marks high temperature phases in the system Ag2S---Ag2Se--Ag2 Te. Data sets derived from x-ray diffraction,calorimetry, four-probe conductivity and x-ray absorption spectroscopy analyses will be incorporated into a computer model of the super ionic phases.